SBIR Phase I: Novel Solid State MicroBatteries Based on Embedded Nanostructured Cathodes of Defective Lithium Manganospinels

This Small Business Innovation Research (SBIR) Phase I project focuses on the development of integrated, high performance thin film batteries for portable devices and stand-alone sensors. The rapid development of high performance Li-Mn-O integrated micro-batteries for sensors/communication devices/electronics devices will require significant advancements in charge/discharge rate capability, increased cycle life and low
temperature integration capability. To address these issues, the fabrication of
novel solid state micro-batteries based on embedded nanostructured cathodes of defective
lithium manganospinels using non-equilibrium techniques is proposed. Low temperature fabrication of high performance Li-Mn-O embedded cathodes will be demonstrated while the final goal is an integrated battery based on such electrodes.
.
Companies are closely working with academic and industry leaders to develop powerful
RFID solutions and sensor networks. This research will help demonstrate the potential
for this new technology to enhance public safety, reduce the cost of doing business, and
bring a host of other benefits to business and society.